Scattering and Reactions of Intermediate Energy Projectiles

This grant will support the experimental work of the
Intermediate Energy Nuclear Physics Group at Rutgers University.
The Rutgers group carries out experiments primarily
at the continuous electron beam accelerator, CEBAF, located at the
Thomas Jefferson National Accelerator Facility
in Newport News, Virginia. Their experiments are aimed at
improving our understanding of the structure of nucleons. Although
we know the basic building blocks of nucleons are quarks and gluons,
how they interact to give the nucleon its observed properties is
still not well known. Our experiments use spin, a fundamental property
of sub-atomic particles, as a sensitive probe of the
nucleon. One type of experiment measures the polarization of
ejected protons when polarized (spin-aligned) electrons are scattered
from nucleons. This determines the distributions of charge and
magnetization in the proton, and how those distributions are changed
when the proton is bound in a nucleus. Another type of experiments
uses polarized photons absorbed on deuterium. The polarization of
the outgoing protons is sensitive to the mechanism of the absorption,
and hence to the way the quarks and gluons interact in the deuteron.
The third major type of experiments use electrons scattered from a
polarized helium target to study the quark spin structure of the neutron.